Many-Body Scattering

The object of the proposed research by Andras Vasy is the study of many-body
scattering. The data from a scattering experiment are mathematically
represented by the scattering matrices, or S-matrices. The central issue
in many-body scattering is understanding the structure of these operators.
A new method is now available for the analysis; it adopts techniques used
for the study of hyperbolic equations. This project will employ these
microlocal techniques to analyze the wave front relation of the free-cluster
to free-cluster scattering matrix in many-body scattering, involving
arbitrarily many particles, when the subsystems have no bound states.
This S-matrix represents scattering data when both the incoming and the
outgoing particles are asymptotically free, i.e. they are not bound together.
Its wave front relation describes the singularities of the outgoing data
in terms of those of the incoming ones. More precisely, the main goal of the
present project is to prove that if the subsystems of a many-body system
have no bound states, e.g. if all potentials are non-negative, then the wave
front relation of the free-cluster to free-cluster S-matrix is given by
the broken geodesic flow to distance pi on the sphere. The absence of bound
states simplifies the phase space structure of the problem and hence
provides an ideal first step towards the understanding of the S-matrices
in general. In addition, in this situation the problem is geometrically
analogous to the wave equation in domains with corners. Thus, the completion
of the project will demonstrate that scattering is in many respects a
hyperbolic problem, similar to the wave equation. The next step will be
to analyze what happens if there are bound states in some subsystems;
in this case one has to combine the behavior of bound states with the
classical dynamics to understand the propagation of singularities.

Indeed, many people are familiar with the following two descriptions of
the propagation of light. First, in geometric optics, light propagates
in straight lines, reflecting from surfaces according to Snell's law.
That is, the angles of incidence and of reflection are the same, as if
light consisted of little billiard balls. Second, light can be described by
the wave equation, its propagation thus being similar to that of water
waves. There are many ways in this particular example in which the first
picture gives a rough description of the second, but the following
connection has particularly wide-ranging generalizations: singularities of
the amplitude of the wave (`sharp signals' or `jumps in signals') propagate
along light rays. The purpose of the current proposal is to investigate the
analogous relationship between classical and quantum mechanical particles,
that is, to analyze in what ways does the motion of classical particles,
considered as little billiard balls colliding with each other, describe
the motion of quantum mechanical particles. In more concrete terms, how well
does the motion of four billiard balls describe how four electrons collide
with each other? Since it is easier to analyze the corresponding properties
of classical systems than those of quantum ones, just as it is easier to
describe light moving in straight lines than to solve the wave equation,
the answer to this question significantly improves our understanding of
quantum mechanics.